Electronic and Structural Properties of Atomic Clusters

This research addresses two important problems in the physics of small atomic clusters which have not been treated before: Electronic excitations and thermal effects on the cluster structure. The first topic is treated using a Green's function or quasiparticle formalism in terms of the screened coulomb interaction. This is a non-perturbative formalism in which the particles interact through a non-local potential which is screened by the dielectric function of the medium. It goes well beyond the local density approximation normally used in metallic systems which is known to be poor for the excitation spectrum. The calculations will yield the work function, plasmon spectrum and Mie frequency for various cluster sizes. The second part of the research looks at the effects of temperature on the equilibrium structure. Here the PI's will minimize the free energy with explicit consideration of the rotational, vibrational and electronic degrees of freedom. Drastic changes are expected especially for carbon clusters where the large number of degrees of freedom and different isomers correspond to similar energies.